Decomposition Approach for Designing Manufacturing Systems

The material flow within manufacturing can be characterized by three different types of activities: make activities; move activities; and store activities. The configuration of the move and store processes is a fundamental system design decision. The objective of this research is the characterization of system performance in terms of this configuration decision. Specifically, the objective of this project is a mathematical methodology and associated computational techniques for rapidly and accurately predicting performance for a special class of manufacturing systems. The approach to be used is based on a network of queues model developed in a prior work, however, the solution approach in this project involves the decomposition of the real problem into separate problems for the major system elements. The subproblems will be analyzed using models such as continuous time Markov chain models and queueing models. This project will produce the characterization and the analysis tools for a broader class of applications than existing analytic methods.